A Conference on d-Bar Estimates and their Applications to be held at Princeton University, on September 19-22, 2002

ABSTRACT

PI: Siu, Yum-Tong
Proposal: DMS-0204043
Institution: American Institute of Mathematics

A conference at Princeton University will be held in September 2002 to
study geometric applications of D-bar estimates which have appeared in the
past decade. The conference will bring together researchers in D-bar
estimates and mathematicians in related fields to survey the techniques
and problems of D-bar estimates and their geometric applications.

One special feature of the conference is an emphasis on the participation
of young and women mathematicians. Moreover, for the benefit of young
researchers (and mathematicians in other fields) interested in learning
to get into the topics of the conference, a formal session of open problems
is planned for the conference and, after the conference, a website will be
put together and maintained under the umbrella website of the American
Institute of Mathematics (http://www.aimath.org).